Secure and Proactive DNS

The Domain Name System (DNS) is a hierarchically distributed
database that provides information fundamental to Internet
operations, such as translating between human readable host names
and Internet Protocol (IP) addresses. Due to the importance of
the information served by DNS, there is a strong demand for
securing communication within the DNS system. The current
(insecure) DNS does not prevent attackers from modifying or
injecting DNS messages. Users accessing hosts on the Internet
rely on the correct translation of host names to IP addresses by
the DNS. A typical attack, referred to as DNS spoofing, allows an
attacker to manipulate DNS answers on their way to the users.
If an attacker makes changes in the DNS tables of a single
server, those changes will propagate across the Internet as a
viral infection. Increasingly, DNS is also being used to perform
load distribution among replicated servers. For instance,
companies such as Akamai have used DNS to provide Web content
distribution. Moreover, there is consensus that since DNS is a
global and available database, it can be employed as a Public Key
Infrastructure (PKI) which would enable e-commerce applications.

Securing DNS means providing data origin authentication and
integrity protection. Existing proposals for securing DNS are
mainly based on public-key cryptography. In this proposal, the researcher
describes a new approach based on standard symmetric (or
secret-key) cryptographic techniques. The researcher introduces the concept of
DNS symmetric certificate that are used to create a trusted path
from the DNS root server to a server that is authoritative for a
portion of the DNS tree. This strategy is very similar to the one
introduced by Davis and Swick and symmetric certificates can be
seen as a sort of tickets in the Kerberos system which create a
trusted path from the authentication server to the destination
server going through the ticket-granting server. DNS symmetric
certificate are as manageable as public-key certificates with the
exception that they cannot be shared, which is not generally
required in the DNS system. The project solution enables a wide range of
secure services previously believed impractical or too difficult
to manage, such as mutual authentication and key revocation.
Moreover, the gain in terms of computational complexity, network
traffic, and storage requirements is impressive when compared
with public-key cryptography based approaches. The research has clear
ideas on how to define a secure DNS system based on symmetric-key
cryptography. The researcher proposes to build such a system and make public
the prototype implementation.

The second part of the proposed research, would focus on a still
unresolved problem: A DNS server represents a single point of
attack which could easily be compromised. The researcher would like to
investigate the possibility to distribute the role of a single
DNS server among several servers. The research proposes a proactive DNS
system that can survive component failures (whether malicious or
not) by combining standard techniques of decentralized storage
and dynamic self-maintenance. The researchers approach would allow DNS
servers to automatically recover from possible, undetected
break-ins and then maintain uninterrupted security. The researchers propose to
use the proactive security model, which provides a method for
maintaining the overall security of a system even when individual
components are repeatedly broken into and controlled by an
attacker, as long as not too many servers are compromised at the
same time. The approach employed by the proactive security model
is to first distribute the cryptographic capabilities among
several servers, next have the server periodically engage in a
refreshment protocol. Information gathered by an attacker before
a refreshment period becomes useless to attack the system in the
future. The researcher proposes to define, and build, an architecture that
combines decentralized storage system technologies, data
redundancy and encoding, and dynamic self-maintenance to create
survivable DNS servers based on the proactive security model.